Shipboard Scientific Support Equipment

This project will supply shipboard scientific equipment for the research vessels MELVILLE, NEW HORIZON, and R.G. SPROUL, operated by the Scripps Institution of Oceanography, and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, George G. Shor is fully qualified to direct this project having had considerable experience in overseeing the acquisition and installation of shipboard equipment. In contributing to the MELVILLE's overhaul/refit, this project will allow the institution to complete the installation of the dynamic positioning system, replace a radar, upgrade a GPS/LORAN navigation system, install an uncontaminated seawater system, construct and install a storage locker for science chemicals, and install gantry cranes, a J.frame and hoist machinery on the MELVILLE. In addition, the NEW HORIZON's GPS/LORAN system and bow thruster starting system will be updgraded, and the SPROUL's hydraulic piping will be modified.